Computer Aided Design/Computer Aided Manufacturing of Dies for High Strength and Profile Polymer Extrusion

This proposal is to improve the quality of polymeric extrudates and to characterize their mechanical properties, particularly those intended for high strength and profile applications. To achieve this goal the principles of streamlined die design as developed for solid state extrusion of metals will be explored and applied to polymers. Finite element techniques will be used to analyze both the flowing material and the die deformation. Characterization of polymers for conventional extrusion and melt transformation coextrusion will be conducted, with the results confirmed or altered by observation in a side viewing die designed to accommodate sculptured surface inserts. This work should lead to a die design methodology for these types of polymeric materials. This research should result in an improved extrusion process for polymers and a scientific understanding of the melt transformation coextrusion process. Application of these materials is expected in aerospace, medical, automotive, and other applications requiring high strength to weight characteristics.